The Comprehensive Upper Air Demonstrations, Observations, and Soundings (CODOS) Program

9712348 Ruscher This grant will establish a permanent Internet educational site devoted to fostering a better understanding of available data resources collected operationally in the atmospheric sciences. This site will be established as a permanent, unrestricted world-wide web (WWW) location open to all with an interest or need for information on upper air meteorological observations.